Subgrid Discontinuous Galerkin Approximations of Brinkman Equation with Highly Heterogeneous Coefficients

There is an abundance of challenging problems in physics and engineering, such
as fluid flow in industrial foams and vuggy reservoirs, which are
characterized by high porosity and complex material structure. Traditionally,
these flows are modeled by Darcy's law relating the macroscopic pressure
gradient to the macroscopic fluid velocity. For highly permeable media a more
suitable model is given by Brinkman's equations, considered in this project.
The internal structure involves multiple spatial scales and permeabilities
varying over many orders of magnitude (high contrast). Thus, the development
of numerical methods for Brinkman's equations that are robust with respect to
the contrast and accurately capture the fine scales is a difficult theoretical
problem with important applications to engineering and geosciences. There are
numerous methods for efficiently computing multi-scale porous media flows
governed by Darcy's law. These include in particular multi-scale finite
element methods, subgrid approximation, multi-grid, and domain decomposition
methods. Developing an efficient multi-scale approximation for Brinkman is a
challenging task, which cannot be addressed using methods available in the
Darcy case. The first objective of this project is a development and study of
numerical subgrid method for Brinkman's system. The second goal is to
represent accurately the fine features of the solution, which cannot be
captured by the numerical subgrid approach alone. An extension of the
algorithm by alternating Schwarz iterations in order to resolve these features
will be developed, theoretically justified and practically tested. The third
main objective is to utilize a multi-scale finite element space and an
enrichment of the coarse space by adding basis functions resulting from the
approximate solution of certain small local generalized eigenvalue problems.
This will allow to devise an iterative method that converges independently of
the contrast.

Phenomena in engineering such as heat and mass transfer, fluid flows, and
materials, are routinely modeled by partial differential equations (PDEs). The
solutions of the PDEs are subsequently used to design and develop new
materials or new technologies with wide range of applications. These
applications require complex models with multiple space scales, which in turn
make the solution task challenging and computationally very intensive. The
proposed work is motivated by the needs for design and manufacturing of new
materials and/or more accurate description of oil reservoirs or aquifers.
However, developing efficient and robust solution techniques for computing
flows in media with complex internal structures will significantly broaden the
areas of application for which the numerical simulation is feasible. Since
numerical simulations are key to better understand, control, and optimize the
modeled processes the proposed research will eventually benefit other areas in
science and engineering.